REU Site: Penn State Research Experience for Undergraduates and Teachers Program in Condensed Matter Physics and Interdisciplinary Materials Research

Penn State University continues operation of a Research Experiences for Undergraduates/Teachers (REU/RET) Site hosted by the Penn State Department of Physics and the Penn State Materials Research Science and Engineering Center. Eleven undergraduate students from diverse backgrounds are recruited every year for a ten-week summer research experience. Five teachers are supported every year for a six week summer research experience. Science teachers and students majoring in science and engineering disciplines participate in a variety of research projects in condensed matter and materials research within laboratories located in science and engineering departments at Penn State. Participants attend weekly seminars, workshops on computer simulations, machine shop courses, tour of the nanofabrication facility, a trip to the Franklin Institute in Philadelphia, and present the results of their research at a symposium. The program provides opportunities for the REU participants to interact with other undergraduate, graduate and post doctoral researchers as well as eminent faculty mentors. This REU/RET Site is co-funded by the Division of Materials Research and the Office of Multidisciplinary Activities in the Mathematical and Physical Sciences directorate.